CAREER: Codes on Graphs, Factor Graphs, and Iterative Algorithms

CAREER: Codes on Graphs, Factor Graphs, and Iterative Algorithms

The primary focus of this research is the investigation of creative new
methods for reliable transmission of information in the context of modern
error-control techniques. Error-correcting codes are an essential part of
modern communication and storage systems and much of today's technology
would not be possible without them. This study is focused on graph-based,
iterative decoding algorithms, which, without doubt, are one of the most
significant coding-theoretic developments of the last decade. The goal of
the investigator's research is to develop a broad, analytical, and
constructive approach to research and education, unifying graphical
models, coding theory, and iterative algorithms. The interplay between
codes on graphs and other areas, like iterative graph-based algorithms,
system theory, and network information theory, is in the focus of this
investigation with the goal of discovering and utilizing fundamental
connections between these fields.

The central notion of this research is the framework of "codes on graphs"
and "factor graphs". Three main thrusts of research are present. The first
main thrust is directed towards the analysis and theoretical study of
iterative decoding algorithms in graphs with and without cycles. The main
tools for this research originate in recent successes in the analysis of
codes on graphs as the codelength approaches infinity, and in the notion of
pseudo-codewords for short codes on relatively simple graphs. Both
approaches are made viable by drawing heavily on the properties of the
underlying graph in the code construction.
The second main thrust involves problems arising from generalizations of
minimal realizations of codes on graphs. This work has important
ramifications to behavioral system theory, network information theory and
iterative decoding. The goal is to derive algorithms that achieve a
"minimal" realization of a code on a graph. A solution to this question is
closely related to important problems in network information theory and the
achievability of desired information flows in a given network topology.
The third objective of the investigator's study is aimed at jointly
optimized receiver functions in a graph-based iterative setup. Factor
graphs provide a natural and generic framework for the study of iterative,
belief propagation algorithms on graphical models. One of the most
exciting opportunities offered by the factor graph framework is the
possibility of incorporating a variety of different estimation tasks into
a joint optimization. The research focuses on opportunities to realize, in
jointly optimized subsystems, the gains that are essential for future
communication systems.